ROA/RUI: Use of Stable Isotopes of Carbon in Vegetation and Soil Organic Matter to Assess Vegetation Change in North American Prairies

Organic matter produced by C3 and C4 grasses in North American prairies possesses distinct isotopic signatures. These labels show genetically and environmentally based variation which is fairly well understood theoretically but not characterized well ecologically. The labels are transmitted in a quantitatively predictable manner to higher trophic levels and, in a less understood manner, to soil organic matter (SOM). Prairies comprising C4 and C3 systems will be studied to establish quantitative relationships among composition, proportional productivity, biomass delta 13C, biochemical composition, and SOM delta 13C. Analysis of particle size fractions and soil aggregates will indicate whether SOM and vegetation are in a steady state or successional. Comparisons among many prairies may show the presence of any consistent directional change in composition during the recent past and last 1,000 years. Fine and course grained soils in shortgrass and tallgrass systems will be compared and it will be determined whether or not phytoliths can be used to distinguish between shortgrass and tallgrass components. The range of naturally occurring delta 13C values in plants and compartments will be documented and related to growth forms and environmental factors. Studies of prairies and old fields with known land use histories will allow an estimation of rates of turnover of particle size fractions and soil aggregates. An analysis of several late Pleistocene and Holocene paleosols will be undertaken.